The Aerospace Science Leadership Institute

This proposal seeks to enhance the scientific skills of middle school science teachers in New York City. In cooperation with New York Community School Districts 5, 8, 9, 11, 29, and 32 the City College of New York CUNY proposes the Aerospace Space Leadership Institute. The program is for three years and focuses on the training of 48 certified middle school science teachers (grades 5-8) to become peer leaders in their districts. Using resources from Learning Link, the NASA Resource Center at City College, the Intrepid Air and Space Museum, and the Young Astronaut Program, the college will provide participants with content, technology, and leadership skills which will enable them to become effective educators of teachers equipped to help their colleagues integrate science and technology in their classrooms. Opportunities will be provided for the development of aerospace science and interdisciplinary curriculum projects that will be shared on the Learning Link electronic network. Cost sharing is equivalent to 37% of the NSF award.